RUI: An Emai Dictionary

9409552 Schaefer ABSTRACT As a part of an interlocking program of linguistic documentation, this grant provides funding to undertake formation of a bilingual dictionary for Emai, a previously undescribed language of southern Nigeria. Utilizing linguistic resources developed through previous fieldwork, the PI will analyze and select pertinent lexicographic information and arrange it on computer files in the form of suitable Emai:English and English: Emai dictionary entries. The result, which will complement a selection of oral tradition texts and a reference grammar, will be a descriptive dictionary intended for scholars from a range of disciplines. ***